Molecular Biology of Cuticular Wax Biosynthesis

9316832 Schnable The composition of the cuticular wax of plants is complex and incompletely known, and little is known regarding the biosynthesis of this material(s). The glossy8 locus, one of the seventeen loci known to be involved in the biosynthesis of this wax in maize, has been molecularly cloned by tagging with a transposable element. In addition, the cer2 locus of Arabidopsis, which is involved in cuticular wax biosynthesis, has been localized to a 70-kb segment of the genome. The cer2 locus will be identified by genetic complementation tests. Both genes will then be used to study the biochemical and genetic mechanisms involved in the biosynthesis of these unique and biologically significant plant lipids. The cuticular waxes of plants constitute the first barrier to the environment and the stresses it imposes on plants. Thus, these waxes lay an important role in plant survival. The composition of these waxes and the biosynthetic pathways by which they are formed are incompletely understood. This project will make use of molecularly cloned genes to examine the gene products of the biosynthetic pathway and thus enlarge our understanding of it. ***